Sol-Gel Processing of Multi-Dimensionally Reinforced Ceramic Matrix Composites

This proposal applies the multi-dimensional reinforcement and near-net-shape manufacturing offered by 3-D fabric composites to the textile processing of ceramic matrix composites (CMC). The processing methodology has been successful in the field of polymer matrix composites. Sol-Gel process will be used to produce ceramic materials and CMC. This methodology, if proved to be successful in the field of CMC, can help to make CMC less limited by damage tolerance and composite machining and joining problems. %%%% This program applies the methodology which has been successful in the textile processing of polymer matrix composites to the textile processing of ceramic matrix composites (CMC). Sol-Gel process will be used to produce the ceramic materials. This type of textile processing open up new opportunities in manufacture and tailoring of CMC according to microstructures and properties.